Protozoan Fauna of Poison Arrow Frogs: Taxonomy and Ecology(Biological Sciences): VPW

Commensal and parasitic protozoa will be identified from Dendrobates auratus and Dendrobates pumilio, both wild caught in Costa Rica and captive bred. Prevalence and density of infections will be recorded, and the fauna compared between species under both wild caught and captive bred conditions. Protozoa, (particularly the hemoflagellates and ciliates, opalinids and flagellates in the rectum), will be identified to genus and species using light microscopy (especially protargol impregnation), and scanning and transmission electron microscopy. Protozoa will also be examined in histological sections. Little is known of the protozoan fauna of threatened poison arrow frogs, and the project results will: increase knowledge of their biology; enable their fauna to be compared with that of other anuran families, increasing understanding of their evolution; and allow more effective care and treatment of captive dendrobatids. Descriptions of several new species of protozoans are anticipated, of particular interest being the potentially pathogenic and poorly described diplomonads. The project also furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigators' enhanced visibility as role models on the host campuses. In this project, the proposed activities which contribute to the second objective include: participating in an outreach program, targeting high school minority women interested in pursuing a career in life sciences; teaching an undergraduate course in basic parasitology, emphasizing the impact of parasites on human health; and teaching a graduate course on parasites of aquatic animals.